Deep Learning and Visualization Technologies

9720351 Thomas Defanti University of Illinois Deep Learning And Visualization Techniques This award is to study the use of visualization techniques in encouraging deep learning of concept. The notion was initially developed on a virtual reality CAVE environment to illustrate the concept of gravity. The PIs are studying other educational applications where a compelling case for virtual reality can be made.